REU SITE: Research Experiences for Undergraduates at the Oklahoma Weather Center

9701902 Palmer An objective of the Research Experiences for Undergraduates (REU) Program is to provide talented undergraduate students with the opportunity to obtain active experience in research. After a series of summer programs hosted by the National Oceanic and Atmospheric Administration s (NOAA) National Severe Storm s Laboratory (NSSL), scientists at various meteorological institutions Norman, OK (collectively known as the Weather Center) met to discuss the summer program and ways to improve it. The result was a proposal to the NSF to establish a REU site at the Weather Center. The REU program proposed for 1991 addressed the concerns identified by the hosts of the NOAA program with a plan to increase the number of students, the number of mentors, and the variety of institutions participating, as well as the level of financial support to be offered and an increased effort to recruit students from underrepresented groups. In addition to NSF, the NSSL continued its support at about the same level as in 1990. For ten weeks, from June 10 through August 16, 1991, fourteen undergraduates from eight different states and nine different undergraduate institutions participated in the program of lectures, demonstrations, laboratory experiments, field trips, and individual research projects. Their positive evaluations of their experience led to REU sites in the Summers of 1992 and 1993. Under the current award, this series will continue with approximately ten undergraduate students participating in the late Spring/early Summer of 1998. At the Oklahoma Weather Center, students will participate in atmospheric research and data analysis under the supervision of mentors from throughout the Oklahoma Weather Center. The students' research experiences will be supplemented by tours of Weather Center facilities and lectures to produce a well-rounded summer learning experience. This will give the students an opportunity to become more aware of scientific ethics an d issues relating to gender and racial discrimination, and to judge for themselves whether a scientific research career might be right for them. The students will prepare and present papers reporting the results of their research. The students will be provided housing, transportation to and from the REU, and a modest stipend to make the program accessible to economically disadvantaged students who must work during summers to support their continuing education. The Principal Investigator will make recruiting trips to encourage underrepresented minorities and women to apply to the program. For example, the Principal Investigator will travel to and work closely with the Department of Physics at Clark Atlanta University (CAU), a historically African-American university, in recruiting motivated students. The Principal Investigator also intends to perform a follow-up evaluation of students who have participated in these programs in the past in order to obtain some measure of effectiveness. ***